Electronic and Mechanical Properties of Low Dimensional Conductors

This research program plans to study the linear and nonlinear dynamics and elastic properties of low dimensional conductors supporting charge density wave (CDW) and spin density wave (SDW) condensates. The CDW systems include, among others nyobium selenides and sulfides, tantalum sulfide, and several alkali molybdates, while the SDW systems include chromium, uranium- ruthenium silicide and a one-dimensional organic chain. A variety of electrical conductivity and noise measurements will be performed over a wide range of frequency, magnetic field, pressure, and sample spatial extent to determine the internal mode dynamics, metastable state structure, and the role of electron-electron correlations. The properties of the dynamic SPW condensates will be explored. Elastic measurements of CDW or SDW materials in the presence of ac + dc electric fields and other perturbations will help establish internal mode deformations and lattice couplings. Nonlinear dynamics (chaos) studies will help reveal the number of active degrees of freedom in CDW transport and the role of amplitude dynamics.